Student Travel Grant: 43rd IEEE Conference on Decision and Control (CDC'04); Paradise Island, Bahamas; December 14-17, 2004

This is a request for travel funds to support students participating in the 2004 IEEE
Conference on Decision and Control (CDC04) to be held in the Paradise Island, Bahamas,
December 14 -17, 2004. The funds will be used for travel support of students from US
institutions, who will be presenting papers at the conference.
Intellectual Merit: The CDC is one of the world's largest and most important conferences
on control theory and applications, with over a thousand participants and very high
quality presentations. The CDC is an annual conference, now in its 43rd year.

Broader Impact: This travel grant will enable students to participate in the 43rd CDC,
present their papers and interact with more senior researchers and other students. The
CDC with its consistently high quality papers is an ideal place for dissemination of
research results. The CDC attracts well-known researchers from around the world and it
offers a unique opportunity to meet and interact with them. It is anticipated that the
opportunity, made possible by this grant, for students to go to the CDC will encourage
them to further pursue high quality research and will have significant impact on both
research and education in the systems and control area, which spans several science and
engineering disciplines.